Synthesis and Reactions of 2-Arenesulfonoxy Carbonyl Compounds (Chemistry)

This project in the Organic and Macromolecular Chemistry Program is a continuation of studies on the design and development of fundamentally new reactions and reagents for organic synthesis. The project will investigate the synthesis and use of 2- arenesulfonoxy carbonyl compounds as synthetic intermediates for the selective and controlled preparation of a variety of carbonyl derivatives. This effort is based on the observation that these materials are distinctly different in their reactivity than functionally similar 2-halo carbonyl compounds. Four specific objectives of the project are: (1) to prepare 2-arenesulfonoxy derivatives of esters and amides, (2) to utilize the acidity of the 2-position to elaborate simple 2-arenesulfonoxy carbonyls into more complex ones, (3) to examine the alpha-substitution of these compounds as a facile route to substituted carbonyl compounds, and (4) to the apply methods of synthesis of 2- arenesulfonoxy carbonyl compounds as a new method for the generation and trapping of oxonium and iminium ions.